Workshop Proposal: Scholarly Evaluation Metrics: Opportunities and Challenges

This workshop aims to bring together leading scientists and practitioners in the domains of bibliometrics, informetrics, network and web science, digital libraries, academic policies, and open repositories for a public discussion on the quantitative evaluation of scholarly impact and value of publications. on scientific research. Quantitative evaluation of scholarly impact and value has historically been conducted on the basis of citation data. This approach is not always appropriate or accurate in the fast-paced, open, and interdisciplinary nature of scholarship which is, to a large degree, dependent upon digital data and sources. The workshop is meant to provide guidance and research agendas for further development of metrics for scientific impact and value. The workshop's intellectual merit is found in defining the scientific criteria and objectives that would lead to a more general community-acceptance of various impact metrics. The impact of science as traditionally measured is at the point of fundamental change as the digital research environment grows and attracts more participants. Novel impact metrics, that gain community acceptance, may lead to a more diverse and balanced scientific landscape in which the contributions of a larger and more diverse community are more equally recognized and valued.